Languages of the Vietnam-China Borderlands

The present project is to prepare a database in electronic and book form of phonological, lexical, and (to a lesser extent) grammatical information on selected languages of northern Vietnam. We are targeting languages or varieties unstudied outside Vietnam, specifically those found in the far northwest of Vietnam: (1) Kadai and Tai family Bouyei/Yay (Giay/Bo Y), Laha (La Ha), San Chay/Cao Lan, Bl./Wh/Red Thai (2) Hmong-Mien Hmong (Meo), Dao (Yao, Kim Mun), Pa-hng (Pa Teng) (3) Mon-Khmer Khang, Mang This project is significant because the Tai and Kadai, Hmong-Mien, and Mon Khmer groups of extreme northern Vietnam (Haut Tonkin) occupy a special place in the linguistic history of East and Southeast Asia, but have remained linguistically poorly known up to now. The goal here is to begin to fill this gap in knowledge. The end products of this study will be: (a) an electronic database in MS-Excel format with lexical items in IPA transcription and (b) a research monograph. The data to be collected for this project could be quite important generally for SE Asian linguists, linguistic typologists, historians, and anthropologists studying the spread of languages and material and non-material culture from China into SE Asia. It will also be important specifically in clarifying: (a) the linguistic developments that have led to modern Lao, Thai, Hmong and some Mon-Khmer languages, (b) the nature of the proto-languages from which they have descended, (c) the interaction of pitch and voice quality co-occurrence phenomena, and (d) the terminological confusion about genetic affiliation and place in the family of some of these groups.